CAREER: Dual Reinforcement Learning: A Unifying Framework with Guarantees

Reinforcement learning (RL) holds the promise to automate and improve many real-world processes that require sequential decision-making to optimize some long-term objective, such as self-driving cars, industry automation, recommendation systems, and more recently in natural language processing. There has been much exciting progress in the field of deep reinforcement learning in the past few years, with RL agents demonstrating remarkable performance across a wide range of problem domains. However, to achieve this progress, it is necessary to have access to a fast simulator and tens or hundreds of millions of data points that are collected, trained on, then thrown away. Off-policy methods are an alternative approach, which provide much more data efficiency because they are not restricted to only training on on-policy data and can even be used to train on existing offline data. This suggests that to truly unlock the potential of reinforcement learning, we must develop principled off-policy algorithms. This project is focused on advancing RL by looking at a framework that aims to provide a unified, principled objective that applies to both standard and off-line RL settings and will allow us to efficiently solve large-scale, real-world, sequential decision-making problems.

In this project, the PI will examine the dual formulation of this objective, which gives rise to a principled off-policy objective that sidesteps issues present in the more commonly used primal formulation. This objective will lead to algorithms particularly suitable for large state-action spaces, long horizons, and sparse rewards encountered in real-world problems. The PI will explore connections between existing and new imitation learning and reinforcement-learning methods and the proposed framework. The PI will show that both imitation learning and reinforcement learning methods are unified under this objective and present theoretical guarantees for this class of methods. Finally, the PI will extend the dual framework to leverage pre-training and fine tuning for improved sample efficiency. This includes exploring methods for incorporating out-of-domain datasets and multiple modalities in self-supervised pre-training, especially relevant for applications in household robotics.